Microvoltammetric Electrodes

This project is in the general field of analytical and surface chemistry and in the subfield of electrochemistry. The principal investigator will utilize the advantages afforded by electrodes of microscopic dimensions to explore the kinetics of very fast electrochemical and coupled chemical reactions, to investigate electrochemistry in supercritical fluids, and to study solvent effects on electrochemiluminescence. Electrodes of micrometer dimensions enable the rates of chemical and electrochemical reactions to be investigated on a submicrosecond time scale. Arrays of microelectrodes held at different potentials enable study of short-lived reaction intermediates. These electrodes can also be employed for chemical analysis in microscopic solution volumes. This research project will continue to advance the development and applications of microelectrodes.